2012 RESNA Student Design Competition

This is funding to support the Student Design Competition (SDC), which will be part of the 2012 annual RESNA conference to be held June 28-July 3 in Baltimore. Today, between 40 and 56 million people in the United States report some type of disability, and this number will likely grow in the coming years as the baby boom generation enters late life. RESNA, the Rehabilitation Engineering and assistive technology Society of North America, is the one organization with an international focus that is devoted solely to technology for individuals with disabilities. RESNA's membership consists of individuals and institutions covering a range of disciplines (including researchers, clinicians, suppliers, manufacturers, consumers and educators who work in non-profit and for-profit settings), all of whom are dedicated to promoting the exchange of ideas and information for the advancement of assistive technology. In addition to its annual conference, RESNA conducts a credentialing program for assistive technology practitioners, rehabilitation engineering technologists and suppliers, as well as sponsored projects. RESNA's Technical Standards Board is the U.S. Technical Advisory Group to ANSI, the official United States representative to the International Organization for Standardization (ISO), for the development of ISO standards pertaining to assistive technology and other products for persons with disabilities. More information about RESNA and its annual conference is available online at http://www.resna.org.

The RESNA Student Design Competition fosters innovation and creativity with the ultimate goal of producing technology that can contribute to the independence of individuals with disabilities. The first SDC was held in 1980 as part of the inaugural RESNA conference; since then over 225 designs have been identified as winning entries from among over 730 submitted by students from over 117 different universities and institutes of higher learning. SDC entries are required to represent the work of students ONLY, including the design documentation; both undergraduates and graduates are eligible to take part. Many past participants in the event are now leaders in service, research, and educational areas related to technology for people with disabilities. Some past student designs have been patented and are now available commercially. NSF has been a supporter since 2005. This year's funding will enable the SDC to be further expanded and enhanced, so as to include more entries and support for more design teams, especially from minorities, women, and individuals with disabilities. A call for participation has been posted on the conference website, and also distributed electronically to a large number of colleges and universities with engineering and design schools. A team of 5 judges will pre-select entries from up to 10 teams, from which two members each will be invited to attend the conference supported with travel and hotel funds as well as complimentary registration. During a half-day session in which the teams will make presentations before the judges and public audience at the conference, 5 teams will ultimately be selected as the final winners. Judges will have an opportunity to ask questions and make suggestions and recommendations to the design teams. A platform session will be held in which the 5 finalists will make presentations to the general conference attendees. All SDC teams invited to the conference will have an opportunity to present their projects in a poster session during the general conference time. More information about the SDC is available online at http://aac-rerc.psu.edu/wordpressmu/RESNA-SDC.

Broader Impacts: The annual RESNA Conference and the Student Design Competition combine to create a forum for interaction between working and experienced rehabilitation engineers and students who are about to enter the field. Unique in its primary focus on undergraduates, the event provides participants with experience and skills that help them succeed in their engineering and design careers. It further encourages and mentors students in various disciplines to become involved in the assistive technology and rehabilitation engineering fields, and also provides an opportunity for the students to network with their peers and rehabilitation engineers, many of whom participated in previous SDC competitions. To further increase the diversity of submissions to the SDC in future years, participants will build web pages to illustrate their design and design process. The content of all submissions, not just the finalists, will be captured and accessible through the RESNA website, and the information will be searchable through the National Public Internet Site on assistivetech.net and the ATWiki. Not only will young scientists benefit from this medium of dissemination, but professors and those who teach will also be able to share this information with their students as examples of projects that others have done, while service providers and people with disabilities will be able to search for unique solutions to barriers they may face.